Task-Based Coordination of Intelligent Agents

IRI-9508191 Sycara, Katia Carnegie Mellon University $50,000 - 12 mos Task-Based Coordination of Intelligent Agents Due to advances in technology, diverse and voluminous information is becoming available. This presents the potential for improved decision support, but poses challenges in terms of building tools to support users in accessing, filtering, evaluating and fusing information from heterogeneous information sources to support user tasks. Current explorations of Intelligent Agent technology have considered a single agent for each task that acts as a user's assistant. This project explores coordination among different agents that will collectively interact with other agents on a user's behalf to find, fuse and utilize information in problem solving in support of user task. A key component of the proposed research will be collaboration with Dr. Lemaitre of the LANIA Research Institute in Mexico. Because of its bi- national nature, the research effort is expected to have additional benefits, such as promotion of international scientific collaboration, and additional opportunities for experimental testing of our theories and research results.